Travel Funds for U.S. and Developing Country Participants inthe Third Applied Regional Science Conference, Bangkok, Thailand, July 7-9, 1989

This proposal requests funds for partial support of 10 U.S. and 10 developing country participants in the Third Applied Regional Science Conference (ARSC) to be held in Bangkok, Thailand, July 7-9, 1989. The U.S. Coordinator is Dr. Tschango John Kim, Professor and Associate Director, International Programs and Studies, University of Illinois at Urbana-Champaign, who is a member of the ARSC Organizing Committee. He will be assisted in the selection of participants by Dr. Goeffrey J. D. Hewings, Professor and Head, Department of Geography, University of Illinois, Dr. Peter Gordon, Associate Dean, School of Urban and Regional Planning, University of Southern California, and Dr. Koichi Mera, Professor of Commerce, Tokyo International University. Drs. Kim and Mera have overall responsibility for organizing the ARSC. The Local Organizing Committee is being Co-Chaired by Dr. Phisit Pakkasem, Deputy Director General, National Economic and Social Development Board, and Dr. Hiranya D. Dias, Department of Human Settlements Development, Asian Institute of Technology, Bangkok. The major theme of the conference will be Socioeconomic Development of the Southeast Asian Region, especially focusing on applications of regional science methods to regional development problems in developing countries. The major objective of the ARSC is to identify a priority research agenda in regional science in the Southeast Asian region. In addition to the benefits to be derived from the exchange of scientific information in formal sessions, the ARSC will provide two days of field visits to industrial and cultural sites in Thailand. The 10 developing country scientists, partially supported by this project, will be selected from Indonesia, the Philippines, Malaysia, Singapore, and Bangladesh. Other scientists from South Asia, the Western Pacific Rim, and Europe are expected to participate. Selection procedures will give special attention to assure participation of a significant number of younger U.S. scientists. The coordinators of this international conference are highly respected regional scientists with extensive experience in organizing international cooperative activities. This project is relevant to the objectives of the Science in Developing Countries (SDC) Program which seeks to increase the level of cooperation between U.S. scientists and engineers and their counterparts in developing countries through the exchange of scientific information, ideas, skills, and techniques and through collaboration on problems of mutual benefit. Under the SDC Program, conferences may be supported to explore the application of science and technology to development problems. This project supports the SDC Program in each of these areas through the scientific exchanges and cooperative activities proposed.